Mathematical Sciences: Special Year in Approximation Theory

This award will support a special year in approximation theory to be held during the 1989-90 academic year at the University of South Florida under the direction of Professors Edward Saff and Mourad Ismail. It is anticipated that collaborative research interactions will take place among USF faculty and visitors from the U.S. and abroad. The first half of the year will focus on theory (nonlinear approximants, orthogonal expansions, and special functions) and the second half will emphasize applications (numerical methods, image processing, and computer-aided geometric design). A special feature of the year will be a joint US-USSR Conference on Approximation Theory to be held in the spring of 1990.